Presidential Young Investigators Award

The award is the first year of the base amount for this Presidential Young Investigator. The project will investigate the properties of asphalt and asphalt concretes by means of non- invasive and non-destructive techniques.